Phosphorylation of Human Progesterone Receptors

Progesterone is a steroid hormone of fundamental importance in reproduction. To generate probes for studying the mechanisms of progesterone action the progesterone receptor has been purified from T47D, a human cell line which provides a particularly rich source of the receptor. Three IgG monoclonal antibodies have been raised against the progesterone receptor proteins. Though only purified B- receptors (120,000 daltons) were the antigens, 1 of the 3 antibodies cross-reacts with A-receptors (94,000 daltons). In the continuation of this research immunochemistry, photoaffinity labeling and autoradiography will be applied to study how phosphorylation of the progesterone receptor proteins affects their action. The first goal is, using whole cells, to assess the effect of progestins, and intracellular A- and B-receptor localization on the phosphorylation state of the receptors, to analyze phospho-amino acids and peptides, and to study phosphorylation of receptor-associated proteins that do not bind hormone. The second goal is to use reconstituted, cell-free systems to characterize receptor kinases, particularly a putative nuclear kinase, and to assess receptor autophosphorylation capacity. The third goal is to determine whether the phosphorylation state of the receptor proteins varies with relevant physiological stimuli, including known modualtors of progesterone receptors such as estradiol. In sum, the overall goal is to understand how this covalent modification of the progesterone receptor proteins affects their ability to bind hormone, to acquire tight nuclear binding capacity, and to be down-regulated in nuclei. The results of this research should further our understanding of the mechanism of action of this important steroid hormone.